Research Initiation Awards: Perturbation Studies on Cracks, Interfaces and Surfaces

This RESEARCH INITIATION AWARD is to support research on the use of perturbation techniques on cracks, interfaces and surfaces. Problems to be considered include slightly undulating interfaces and three dimensional non-planar cracks.